Continued Analyses and Observations of Triggered Lightning Using Time-Resolved Photography

The object of this research is the physics of the discharge process in both the visible and ultraviolet portions of the spectrum. In addition, electric fields will be measured using a system of "slow and fast" antennas contributed by Professor Marx Brook.